The Fifth FASEB Summer Research Conference on Chromatin and Transciption held on July 10-15, 1999, in Snowmass Village, Colorado.

The fifth consecutive FASEB Summer Research Conference on "Chromatin and Transcription" will be held on July 10-15, 1999 at the Conference Center in Snowmass Village, Colorado.

The objective of this highly successful meeting is to bring together researchers who study DNA-templated processes with individuals who study chromatin structure and organization. These disciplines, previously separate, are becoming one and moving forward at an unprecedented rate. The theme of the meeting is the impact that chromatin structure has on the function of basic cellular processes.